Conference on Algebraic Cycles: II Progress and Prospects, Spring 2008

Abstract

Principal Investigator: Joshua, Roy
Proposal Number: DMS - 0754330
Institution: The Ohio State University
Title: Conference on Algebraic Cycles II: Progress and Prospects

Organizers: Reza Akhtar (Miami University), Patrick Brosnan (University
of British Columbia) and Roy Joshua (The Ohio State University).

This conference will bring together
many of the world’s leading mathematicians to survey current developments,
report on recent progress, and anticipate future developments in the field
of algebraic cycles. The conference will also explore connections with arithmetic
geometry and mathematical physics/non-commutative geometry. Progress in algebraic
cycles, with related results in algebraic K-theory, has been dramatic in recent
years. The principal contributors to motivic cohomology which underlies this
progress, Bloch, Lichtenbaum, Levine, Nori and Friedlander have agreed to
participate. Related investigations include the work of Totaro, Weibel and
Esnault all of whom have agreed to participate. Developments in arithmetic
geometry closely related to algebraic cycles involve the work of Colliot-Thelene
and Huber who will also participate in this conference. The connections between
algebraic cycles and mathematical physics/non-commutative geometry have begun
to be explored in recent years. Some of the main players in this emerging field
are Bloch, Esnault and Kreimer: in addition to Bloch and Esnault, Kreimer also
will participate in this conference.

The venue of this conference is The Ohio State University, Columbus, Ohio,
from Monday, March 24 through Saturday, March 29, 2008. The conference plans to
support participation by a number of young people, at both the post-doctoral
and advanced graduate student level, so that it will serve to stimulate
increased interest and participation in these exciting mathematical topics.